International Travel Grant for Participants in Process Systems Engineering in Sydney, Australia from August 28 - September 2, 1988

Travel support is provided for twelve US Chemical Engineering professors to present papers at the Third International Conference on Process Systems Engineering, to be held in Sydney, Australia, August 28 - September 2, l988. A report will be submitted by the group travel coordinator (G.V. Reklaitis) that includes reports by each of the 12 participants. An allocation of $1,500 per person will be made for airline tickets only.